Photon-Assisted Vortex Depairing in Thin Superconducting Films

Under certain conditions, absorption of a photon in an ultrathin superconducting film can generate a relatively large voltage pulse. They propose to explore this phenomenon further in both low-Tc and high-Tc sc films; they will explore the feasibility of an ultra- sensitive, fast infrared photodetector based upon the phenomenon.